The Privatization of the Home Health Industry: The Case of North Carolina

This MRI Planning proposal will examine state and local government relations in the area of privatization of mandated services and application of privatization to the provision of home health services, the accountability that goes along with this relationship, and the public's knowledge of and satisfaction with privatized home health services. For each of the one hundred countries in North Carolina, information will be obtained about the current provision of home health services. The information will include surveys conducted with directors of county health departments, directors of private home health agencies, and a representative sample of the counties population. Data will be obtained from county health services as to how the issue has been addressed by their county governments and what type of financial arrangement are made with regards to privatized services.